The Kentucky Middle Grades Mathematics Teacher Network

The University of Kentucky seeks support to develop a statewide network of middle grades mathematics teachers, align mathematics content and teaching practices in the state with the NCTM Standards, and provide opportunities for collaboration among classroom teachers, instructional supervisors, teacher educators, and university mathematicians. Eight teams of university faculty, classroom teachers, and instructional supervisors will develop seminars designed to enhance the teaching of algebra, geometry, probability and statistics. Pedagogical emphases include problem solving, use of manipulatives and technology, cooperative learning, and alternative forms of assessment. The teams will conduct seminars for 300 middle grades teachers throughout Kentucky, who will in turn conduct workshops and establish support groups for middle grades teachers in their respective districts. All eight state universities and four private colleges in Kentucky will participate in the project. Cost share provided by the universities and the schools is 25% of the award.